REU Site: The Summer Institute for Nano- and Biomaterials Research at Carnegie Mellon University

The Research Experiences for Undergraduates (REU) Site at Carnegie Mellon University (CMU), the Summer Institute for Nano- and Biomaterials Research, will expose fifteen science and engineering undergraduates to cutting edge research each year. The student research projects are highly interdisciplinary, spanning seven departments and two colleges at CMU, including intra- and inter-departmental collaborations between researchers, allowing the students to interact with faculty, graduate and undergraduate students from a wide variety of disciplines. This REU site at Carnegie Mellon will positively impact the emerging nano- and biomaterials fields by providing educated personnel. The institute includes a summer curriculum development program for high school teachers that will raise the level of awareness about the emerging science of nano- and biomaterials among pre-college students.